SGER: Developing a Northern Indigenous Languages Archive: Yup'ik Pilot Project

As the world's indigenous languages become more endangered the need for
adequate linguistic documentation has become more acute. Of equal
importance is the need to preserve and provide access to existing
documentation, particularly audio recordings. For many endangered
languages archival recordings document speech patterns and features
which are no longer present in the modern language. Archival recordings
can thus provide an invaluable resource for language learners and
researchers in order to assist with language revitalization and
documentation efforts. However, in many cases existing archival
recordings are themselves in danger of decay and are often relatively
inaccessible. This is particularly true for the indigenous languages of
the North. By far the largest collection of recordings documenting
Northern languages is housed at the Alaska Native Language Center
(ANLC), and many of the older recordings in this collection are in
danger of decay and are not readily accessible by indigenous language
communities.

With NSF funding this project is creating a digital archive of more
than 1000 Central Alaskan Yup'ik audio recordings, drawing on the
extensive archival tape collection held at ANLC. The project will serve
as a pilot in order to assess the feasibility of developing a
large-scale digital archive for the indigenous languages of the
circumpolar North and neighboring regions. The Northern Indigenous
Languages Archive (NILA) is intended as a premier demonstration center
for digital archiving, complementing prominent international efforts to
develop regional digital language archives. Recordings will be
digitized according to technical standards developed by the Library of
Congress, and digital recordings will be stored at the Arctic Region
Supercomputing Center. Catalog descriptions (metadata) will be made
available in order to facilitate web-based searching and discovery of
digital resources, which will then be accessible directly via a
web-based interface.